Source Apportionment of Asian Continental Aerosols and their Associated Direct Climate Forcing Using Molecular Markers and Isotope Signatures

This project is an effort to use aerosol source apportionment to study the origin, transformations, and light scattering properties of aerosols in the outflow of Eastern Asia. This study will be carried out in the context of the ACE-Asia experiment. Aerosols will be collected for this study at Cheju Island, Korea and ground sites in China. The analyses will include a broad range of organic and inorganic compounds, and stable isotope ratios of important tracer elements. These analyses will involve ion chromatography, gas chromatography with mass spectrometric detection, and magnetic-sector, multi-collector inductively coupled plasma-mass spectrometry. This is a collaborative effort involving investigators from Georgia Institute of Technology, NCAR, and Oregon State University.